Materials Camp Student Support

0223946
Stoebe
Partial support is provided for a one-week materials camp for 30 high school students, to be held at the University of Washington. Projects will include hands-on experiments in materials characterization, materials processing, and analysis of the failure of components. The camp is for high school juniors from across the US and is taught by mentors who are volunteer professionals. The camp concludes with presentations of each group of the results of a team project.
***